Secondary Reproductive Strategies

Most mammals are promiscuous, only a few species forming monogamous pair bonds, but in birds monogamy is by far the commonest pattern. Natural selection favors individuals that reproduce most rapidly and efficiently and, especially for males, monogamy places great restrictions on the numbers of offspring that can be produced in an individual's lifetime. Therefore, to understand why monogamy is so common in birds, the costs and benefits of this mating system to males and females must be investigated. Although monogamy is generally considered to be the typical mating system of waterfowl, recent studies have shown that variations on strict monogamy can occur in these birds. In some species of ducks, paired males court and copulate with females other than their mates, and some males are able to hold two mates simultaneously. In species where males help their mates protect the ducklings, such bigamous behavior leads to complex conflicts of interests among the members of breeding trios. Dr. McKinney will investigate how such relationships are formed, and how they affect the reproductive success of the males and females concerned, in the South American speckled teal. Dr. McKinney has studied this species in captivity for several years, and it is ideally suited for detailed analysis because males are variable in their contributions to parental care. A combination of field and aviary techniques will be needed. Therefore, individually marked birds will be studied in Argentina and Peru to complement intensive long-term monitoring of relationships among the birds in a captive flock. Dr. McKinney's careful combination of captive and field studies will provide insights into both the proximate mechanisms and the functional significance of departures from strict monogamy, and thus will contribute a great deal to our understanding of complex social systems in general.